Investigation of Martensitic-Like Transformation Kinetics for the Olivine to Spinel Transformation at High Pressure

9506710 Burnley The PI will determine whether or not conditions exist where complete conversion of olivine to spinel by the martensitic-like mechanism is possible under earth conditions by conducting transformation experiments at high-pressure oversteps. The proposal will be a continuation of the reconnaissance study that the PI has performed using the facilities at CHiPR in SUNY Stony Brook. ****